Acquisition of SQUID Magnetometer to Augment Magnetics Research

This SQUID-based sample magnetometer will perform fast, precise measurements of the magnetic properties of materials over a broad range of temperatures and applied magnetic fields. It has a complete and sophisticated computer operating system for control and analysis and allows for total automation. The proposed instrument exceeds current equipment ability in sensitivity, temperature control, and computer control. The system will be used by four faculty members of the Physics and Chemistry departments for fundamental materials research, and will aid in training of undergraduates and graduate students (20), and postdocs (3). The SQUID magnetometer is a central measurement and characterization apparatus for several projects: measurement of magnetic properties of ultrafine parcticles prepared via novel synthetic techniques having unique compositions and structures; studies of storage and relaxation processes of photoexcited charge carriers in II-VI mixed crystals and related critical phenomena; studies of magnetic anisotropy and interface exchange in multilayers of rare-earth metals and transition metals and their oxides and studies of critical phenomena in these systems; and measurements of organic ferromagnets.//